Workshops: Support for Wireless Networking Workshop and PI Meeting

In the past few years the agility of radio systems, in all their aspects, has significantly
increased. In today's world antennas are controllable; there are several options for
compression, encryption, and error control; spread-spectrum (among other techniques) is
available to reduce the radio frequency power spectral density; there are elaborate multi-dimensional modulation techniques; and there is interference reduction using multiple
user detection and other techniques. New radio architectures that exploit many of these
techniques are proposed It is clear that to achieve maximum utilization of radio
capabilities, innovative networks will be involved.

The University of Kansas proposes to continue to support the National Science
Foundation in developing a comprehensive research program in innovative and advanced
wireless networking systems. This project proposes to extend our initial work in eliciting
research problems through the NSF/FCC Workshop on the Future of Spectrum:
Technologies and Policies to (1) a workshop addressing the issues of radio technology
and network protocols and (2) a Principal Investigator Meeting involving the leading
researchers contributing to NSF wireless networking programs.